Riemannian Geometry and Spectral Analysis

DMS-0072154
John W. Lott

Riemannian geometry is the study of curved spaces.
Examples of such spaces are curves and surfaces in
three-dimensional flat space. Riemann showed how to
make precise the notion of curvature for a space of
arbitrary dimension. Spectral analysis can be roughly
characterized as the study of how a space vibrates.
More precisely, to a curved space is associated a certain
partial differential operator, the Laplacian. Spectral
analysis is the study of how the eigenvalues of the
Laplacian depend on the underlying geometry of the space.

In previous work, the principal investigator obtained
relationships between the spectrum of the differential
form Laplacian and the geometry of the underlying space,
the latter being constrained by upper bounds on its diameter
and upper and lower bounds on its curvature. In particular,
he characterized when there are uniform upper bounds on the
j-th eigenvalue of the p-form Laplacian, and when there are
small positive eigenvalues of the p-form Laplacian. He
proposes to extend this work in several directions. One
direction is to just assume that there is a lower bound
on the curvature of the space. New issues arise in this
case, as under the assumed geometric constraints, the space
can ``collapse'' to a highly singular space of lower
dimension. The principal investigator's previous work,
in the case of upper and lower curvature bounds, also dealt
with the singular spaces that arise in a collapsing limit.
However, with just a lower curvature bound, the singular
spaces that arise are of a different nature. He also proposes
to extend the previous work in the direction of analyzing
the spectrum of the Dirac operator, under the geometric
assumptions of an upper bound on the diameter of the space
and upper and lower bounds on its curvature.